Parallel Adaptive Methods for Modeling Nonequilibrium Fluids and Plasma's

9318181 Gombosi This highly interdisciplinary effort is to develop tools for modeling nonequilibrium fluids and plasmas using adaptively refined grids on parallel supercomputers. The development of parallel adaptive-grid methodology, including effective strategies for load balancing and efficient utilization of high-performance microprocessors, will have a major impact on the solution of problems in all areas of fluid and plasma physics. Specific examples include geospace environment modeling, high-altitude aerodynamics, atmospheric science, nonlinear systems generally and advanced propulsion systems. The first application of this model development will be the development of a global magnetospheric model which will be made available to the magnetospheric physics community. This model will use high-order moments of the Boltzman equation with solutions on a 3D adaptively-refined, unstructured mesh which will allow multiple scale analyses, including sub-grid- size kinetic effects. ***